NeTS-WN: IEEE World of Wireless, Mobile and Multimedia Networking (WoWMoM) 2007 Student Travel Support

The goal is to provide travel support to 15 US-based graduate students to attend the 8th IEEE International Symposium on a World of Wireless, Mobile and Multimedia Networking (WoWMoM 2007) to be held in Helsinki, Finland, on June 18-21, 2007 with Nokia as the local host. WoWMoM is a premier forum dealing with cutting-edge research and technology developments in wireless converged (multimedia) networking and applications. WoWMoM Participants include academics, industry and government organizations worldwide. Attendance in this conference will provide the US-based students a unique opportunity to exchange research ideas and network with international peers, thus making them more competitive in the job market. Such experience is so important in this age of globalization.